NSF Young Investigator

9457259 Khosla Research is aimed a conceptualizing and implementing novel inter- disciplinary approaches to address questions in the area of enzyme engineering. Insights gained from this work are to facilitate the development of new biocatalysts and bioproducts for medical, synthetic, and environmental use. ***